From Probability to Statistics and Back: High Dimensional Models and Processes Conference; Seattle, WA; Summer 2010

From Probability to Statistics and Back:
High-Dimensional Models and Processes Conference

The investigator proposes to organize a conference at the interface of
probability, statistics and biostatistics, and machine learning. The meeting
aims to identify the new frontiers that can emerge from the interaction of
these fields. The conference will provide an open forum for discussing
strategies for creating a workforce for the 21s century that will continue
to do fundamental research, which is a key element for the successful
development of the society as a whole.

The themes that will be brought together render uniqueness to this
conference: empirical processes theory, a field of probability theory;
fundamental areas in statistics and biostatistics such as the
theory of nonparametric and semiparametric models
and the theory of shape-constrained estimation; and learning theory. The
meeting will promote immediate dissemination of the most cutting-edge
theoretical results in these fields.